The Effects of Human Activity and Climate Variation on Fire Regimes in Northern Patagonia, Argentina: An Analysis Across Multiple Geographic and Temporal Scales

9421881 VEBLEN The influence of climate variation on vegetation are most evident at coarse spatial and temporal scales. The effects of climate change on vegetational dynamics have been less clear at time scales of decades to a few centuries, however. Foremost among the issues that have hindered research at this scale are problems in separating climate-related from human-induced changes and methodological problems in spatial and temporal scaling. One line of research that has offered great promise are analyses of the role of fire as a factor influencing vegetation change at scales ranging from local to regional. This project will continue collaborations by U.S. and Argentine scientists, who have been studying the impacts of climate and human activities on fire regimes in northern Patagonia over the last 700 to 1,000 years. Past research by these investigators have focused on a single transect ranging from Andean rainforests to Patagonian steppes. This research documented the influences of humans on fire regimes over the last 250 years, and it analyzed the influences of seasonal and annual climate variations on fire regimes. The research to be supported through this award will expand on this base. Research methods that will be used include the dendrochronological dating of past fires, climatic reconstructions through analyses of tree rings, analyses of fire- regime variations over at least 700 years in relation to climatic variation, and evaluation of archeological and historical data focusing on human influences on fire regimes. These analyses will be conducted in three different study areas (at 38-, 41-, and 43-degrees South latitude), which have different histories of human occupation but common regional climatic variations. As a result, human impacts should be distinguishable from broader- scale climatic influences on fire regimes. This research will complement previous research on the dynamics of fire regimes by incorporating the effects of climate variation across a broad range of temporal scales and by broadening the geographic perspective to a regional scale. This integration will be a significant contribution to the challenge of relating research on local-scale processes to climatic and human influences on vegetation at landscape and regional scales.